Mathematical Sciences: An Optimization Approach to Some Problems in Direct and Inverse Scattering

This project concerns the solution of inverse scattering problems for both acoustic and electromagnetic waves. Optimization algorithms of penalization type will be employed to identify the shape or other properties of an obstacle from far- field information.